Cellular Basis for the Hormonal Initiation of Behavior

Novicki, Andrea
IBN-9874496

Steroid and peptide hormones are well known to modify behavior in a wide variety of animals, including humans. The objective of this research project is to understand how hormones act on individual cells to modify their properties, and how these cellular changes lead to alterations in behavior. This study will exploit a simple model system to describe the specific effects of steroid and peptide hormones on identified neurons and muscles, and will correlate these biochemical and physiological modifications of cellular properties with the initiation of behavior.

To elucidate three aspects of hormone responsiveness. Dr. Novicki will use physiological and biochemical technques to: identify the peptide hormone-induced physiological changes in neurons and muscles relevant to a change in behavior; investigate how steroid and peptide hormones interact to assure that behavior occurs at the appropriate time; and examine the peptide-induced biochemical events that underlie the initiation of behavior.

An understanding of the hormonally-induced physiological and biochemical modifications within this relatively simple set of individual identified neurons and muscles will provide a foundation for understanding the cellular and molecular events fundamental to the hormonal modification of behavior.